Computer Graphics Visualization: Collaborative Laboratory Experiences Integrating the Physical, Biological, and Computer Sciences

9451944 Cushing An interdisciplinary team of faculty in biology, chemistry and computer science recognize both the criticality and challenge of integrating scientific visualization into the undergraduate curriculum. They propose to use the computer graphics hardware and software in conjunction with existing personal computer laboratories and computation workstations to support (1) advanced student projects using and developing software for scientific visualization, (2) undergraduate student research, and (3) image generation for use in sophomore-level introductory science programs.